NSF FF: Planning: Intergenerational, Grounded, and Networked Innovation for Technology Education in STEM

This FINDERS Foundry award establishes the foundation for a community‑owned, replicable model of AI‑augmented STEM challenges for students. The interdisciplinary team of students, families, educators, and community knowledge holders develop and document a co‑design process that focuses on integrating key STEM skills including AI prompt engineering, critical output evaluation, coding, engineering, robotics, scientific investigation, and applied mathematics into engaging challenges. The project will generate STEM‑centered excitement and create a replicable, openly disseminated co‑design framework that lowers the cost of entry for similar communities, ensuring all learners can thrive in an AI‑driven world.

This FINDERS Foundry award supports the development of a STEM and AI engagement model that leverages existing cooperative STEM competitions and critical AI literacy practices to build excitement for STEM learning using a situated engagement model. During the STEM challenges, students will use AI tools to support coding, engineering design, problem-solving, and outreach materials while engaging in structured critical thinking and AI literacy practices. Planning outcomes include a research and dissemination plan exploring translation of the wireframe in other communities, documentation of participatory design methods, and readiness criteria for prototype testing and minimum viable product development.